U.S.-China Cooperative Research (Engineering): Study of Unresolved Problems of Transonic and Supersonic Equivalence Rules with Lift

This is a two-year collaborative project between Hsien-Kei Cheng of the University of California, Los Angeles, and Luo Shijun of Northwestern Polytechnic University, Xi'an, China. It is sponsored jointly by the NSF and the Northwestern Polytechnic University. A combined CFD-asymptotic study is proposed to investigate several unresolved, nonlinear aspects and related issues in the theory and application of equivalence rules involving lift. Among the topics to be considered are new aspects of transonic and supersonic equivalence rules involving a nonlinear near field and the use/development of Euler and Navier-Stockes solutions via domain decomposition (and programming parallelism), with the main objective of ascertaining the degree to which shocks and flow in the near field can affect the rule's validity/applicability. Included is also a computer-program development for a 3-D transonic small-disturbance equation with the specific purpose of applying the equivalence rule for predicting shock loss in the far field, which is unavailable heretofore. Among the configurations to be analyzed are wind-tunnel test models, for which drag and flow-field data are available for comparison, as well as oblique, all-wing designs, of which the performance gain with a nonlinear near field is most apparent.